Developing STEM Teachers to Support Digitally-Rich Learning

This Noyce Track 1 project seeks to address the growing national need for mathematics and science teachers who are equipped to teach in digitally-rich classrooms and who can build upon the increasingly technology-savvy students who enter schools each year. It benefits from two previously successful Noyce Scholars' projects awarded to the University of Rochester, and involvement of a newly formed Consortium of involving the university and several school districts in upstate New York working together toward district-wide digital conversion. Digital conversion includes providing each student with a tablet or laptop computer and using these computers to access digital curriculum resources that can enhance student learning. This project's goals are to: 1) continue to increase the number of highly-qualified mathematics and science secondary teachers serving students in high-need school districts; 2) engage these Noyce Scholars in the effective use of technology in the classroom; 3) create a state-wide network of Noyce Scholars for support and sharing of resources; and 4) to better understand what it takes to prepare future teachers most effectively. Achieving the fourth goal has the potential to affect STEM teacher preparation programs nationwide. The teacher certification program for post-baccalaureate students involves 15 courses, including a teaching practicum, four courses specific to teaching science and mathematics, three courses that integrate digitally-rich technology in teaching and learning in mathematics and science, and five courses focused on teaching students from diverse backgrounds and differentiated needs, including students with disabilities and English Language Learners.

This project is directed by the University of Rochester (through its Warner School of Education and STEM departments), in partnership with East High School (a "district within a district" within the Rochester City School District, under New York City Educational Partnership Organization legislation), and East Irondequoit Central School District (a high-need suburban district that is a local pioneer in digital conversion). It will prepare 26 mathematics and science teachers, who are post-baccalaureate (either recent graduates or career changers) STEM majors (geoscience, computer science, biology, physics, engineering, chemistry, or mathematics), for teaching in high-need schools. In addition to obtaining teacher certification, these Noyce Scholars will also receive an Advanced Certificate in Digitally-Rich Teaching in K-12 Schools approved by the New York State Education Department. A critical aspect of the project evaluation seeks to identify common challenges that novice, reform-minded STEM teachers encounter and ways to support them in constructively addressing these challenges. Findings from this evaluative study have the potential to inform teacher education programs and practices nationwide. This project intends to advance, apply, and disseminate knowledge about innovative strategies for the recruitment, preparation, induction, and retention of highly-qualified STEM teachers for high-need schools, with a focus on digital transformation efforts to increase student learning and engagement. As more districts throughout the country move toward digital conversion, a clear need exists to prepare teachers who can thoughtfully integrate technology in the classroom to promote learning and student engagement, particularly in ways that can make mathematics and science more interesting and accessible. This project is poised to contribute evidence about preparing teachers to incorporate high-quality, digitally-based curriculum and instruction in high-need schools.